Student Paper Competition at the 1999 IEEE International Microwave Symposium, June 13-17, 1999, Anaheim, California

9819600
Yu
This project requests travel support for 15 participants from U.S. universities in the Student Paper Competition at the 1999 IEEE MTT-S International Microwave Symposium (IMS).
The IMS is the annual meeting of the Microwave Theory and Techniques Society (MTT-S) of the Institute of Electrical and Electronics Engineers (IEEE). The IMS is also the major international symposium in the microwave field and a focus of research results in wireless telecommunications. The 1999 IMS will be held in Anaheim, CA on June 13-17, 1999.
Each year, the Microwave Theory and Techniques Society promotes student education in microwave theory and techniques through a number of mechanisms. One of the most important mechanisms is the Student Paper Competition at the IMS. This selective program brings the world's best students together in an integrated program in which they present their work not only to a technical audience but also to a group of judges. The program helps develop the students' technical acumen as well as their communication and presentation skills. It also helps introduce them to the international technical community and helps to build a community of students who will lead the next generation of microwave engineers.
The IMS provides financial support of various forms but does not reimburse travel expenses. Travel support from NSF will ensure that the program is open to the widest range of interested applicants from U.S. universities.
***